Technical Services 2000

0072128
Raleigh
This award to University of Hawaii at Manoa provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Ka'imikai-O-Kanaloa to support the Hawaii Ocean Time Series program. The vessel is operated by the UHM School of Ocean and Earth Science and Technology. The technical support awarded here will assist NSF-funded researchers conduct oceanographic studies central North Pacific in the vicinity of Hawaii in CY2000 and beyond.
***